Postdoctoral Research Fellowship in Plant Biology

This award funds a Research Fellowship in Plant Biology for two years. This project is entitled "Specifity of Coat Protein-RNA Interactions in Virus Assembly". The research Fellowships in Plant Biology are granted to applicants trained in traditional areas of plant biology who wish to extend their training in new techniques who wish to gain experience working with plants. These fellowships are designed to increased the number of outstanding young scientists in plant biology.